TTP: Medium: Crowd Sourcing Annotations

Both sound software verification techniques and heuristic software
flaw-finding tools benefit from the presence of software annotations
that describe the behavior of software components. Function summaries
(in the form of logical annotations) allow modular checking of software
and more precise reasoning. However, such annotations are difficult to
write and not commonly produced by software developers, despite their
benefits to static analysis.

The Crowdsourcing Annotations project will address this deficiency by
encouraging software-community-based crowd-sourced generation of
annotations. This effort will be supported by tools that generate, use,
and translate the annotations; the results of annotation efforts will be
shared through openly available repositories. We will also use pilot
projects to demonstrate and encourage the use of annotations and static
analysis. The project will leverage and interact with the Software Assurance Marketplace (SWAMP)
project's collection of static analysis tools and example software. Some
of the technical challenges are developing uniform styles and languages
for annotations, reliably validating crowd-sourced submissions, merging
annotations and the corresponding source code, version control, and
integration with typical software development environments. The social
challenges are also important: designing and implementing a
crowd-sourcing infrastructure in a way that enhances and motivates
community and individual technical and social benefits.